Research Experiences for Undergraduates (SITE) in Experimental Psychology

9400285 COLEMAN This award provides funds to the University of South Carolina Summer Research Institute in Experimental Psychology for educating undergraduate students in the field of experimental psychology. The eight week program will permit ten well qualified students majoring in a behavioral science to experience graduate level research. Students will participate in experiemental research including literature review, hypothesis generation, data collection, data organization, statistical analysis, and writing of papers. Student experiencess will be enriched by weekly research seminars where assigned readings will be discussed, and by weekly sessions on problems or research design and statistics in experimental psychology. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences. ***